Emergency Response and Early Recovery Activities in the Northridge Earthquake

9413270 Tierney This award is being made through the Small Grants for Exploratory Research program to collect data on the January 17, 1994 Northridge, California earthquake. The Northridge earthquake illustrates the immense potential for damage and social disruption that earthquakes present. It also provides a natural laboratory in which investigators can obtain important insight on earthquake response and recovery. This project will involve the collection of perishable information that will shed light on emergency response and recovery patterns and problems following the Northridge earthquake. ***